Fracture Analysis of Interleaved Composites

The objective of the proposed program is to examine how fracture toughness parameters are enhanced by the interleaving method of construction. The program involves both theoretical and experimental phases. The focus will be on the interlaminar fracture toughness and the quantification of the dimensions of the plastic zone around the crack tip.